PYI: Real-Time AI, Cooperative Problem Solving, and Intelligent Systems

This is the first year base amount funding of a five-year PYI continuing award. This PYI will continue his research on distributed artificial intelligence (AI) with an emphasis on building intelligent computing systems for dynamic, multiagent applications. The research uses blackboard systems and other integrating architectures that allow an agent's perception, reasoning, communication, and motor components to collectively control an agent's behavior. The PI is also pursuing work in real-time artificial intelligence. He is working on developing preliminary theories of real-time reasoning that account for both meeting deadlines and for negotiating to change deadlines. This work on techniques for negotiating ties into his additional research interest in uncovering the general principles underlying coordination between intelligent agents. The goal is to build interdisciplinary theories of coordination, drawing on concepts from management science and operations research as well as AI, and to embody these theories in practical mechanisms for coordinating multiple intelligent computing systems. The near term plan is to develop a core of interdisciplinary concepts using a hierarchy of behavioral specifications as a common representation, with the long-term objective of developing fundamental theories of a science of coordination. The researcher is also interested in applying techniques for coordinating AI systems to problems in human-human and human- computer interactions.